Local Cohomology and Related Questions

A large part of Professor Lyubeznik's research on local cohomology
over the last decade has been devoted to the study of a number of striking
connections with several quite diverse areas of mathematics, such as etale
cohomology, topology of algebraic varieties, D-modules and others including
the theory of tight closure and cohomology of groups. Professor
Lyubeznik is going to continue to study these (and some other)
questions by using methods that have been successful in the past as
well as developing some new methods.

It is always fascinating when a connection is discovered between two
very different fields of mathematics because it can result in
unexpected and significant discoveries inaccessible by the methods of
only one of those two fields. This project is in the areas of mathematics known as Abstract Algebra and Algebraic Geometry, with connections to Topology. Abstract Algebra is a vast generalization of high school or college algebra, think of it as the algebra of many simultaneous polynomial equations in many variables. Algebraic Geometry gives a way of studying the solutions to such a system of equations as a geometric object. Topology is the study of those properties of geometric objects that don't change when the object is stretched or twisted, as if it were made of rubber. Over the last decade "local cohomology," an algebraic tool used in all three areas,
has been shown to have some striking connections with a number of
very different areas, including differential equations and
others. These connections are mutually beneficial. For example,
"D-modules," an algebraic version of differential equations, has helped
establish some important algebraic properties of local cohomology, while
local cohomology has helped prove some striking topological results. Even though
considerable progress on this circle of ideas has been made, much
remains to be done.